Future Research Opportunities in the Earth Sciences: Philosophical Perspectives, Spring 1999 Workshop

9903474
Mitcham

The PIs will convene a workshop of 12 philosophers to address a set of issues related to future research priorities in the Earth sciences. These questions may be summarized in the question "What should a future contract between the Earth sciences and society look like?" The workshop will provide a means for the philosophic community to contribute to current thinking on the nature of Earth science research and the relationship between the Earth sciences and society.